Proposal for Attendees Support at the IUPAC/ACS Polymer Conference on Macromolecules for a Sustainable, Safe and Healthy World, June 10-14, 2007, Brooklyn, New York

SUMMARY: Support is requested for the first joint IUPAC / ACS Conference on Macromolecules for a Sustainable, Safe and Healthy World (IUMACRO-07) to be held June 10-14, 2007 in Brooklyn, New York (for program details, see: http:www.polyacs.org). IUMACRO-07 is cosponored by the Division of Polymer Chemistry (POLY) and the Division of Polymeric Materials: Science & Engineering (PMSE) of the Amecian Chemical Socity (ACS). In addition, the conference is supported by donations from industry including: LUBRIZOL, DOW CHEMICAL, TETACORE, INC. ABTECH SCIENTIFIC, INC., APPLIED BIOPHYSICS, INC.; as well as other government agencies including: ONR and AFRI. Joint sponsorship provides an interdisciplinary forum for the presentation and discussion of new and previously unpublished results on advances in polymer chemistry and materials science relevant to NSF initiatives and global macromolecular technology.